GOALI:Adaptive Active Noise Control: Stability Analysis, Algorithm Development, and Efficient Implementation

9528363 Johnson We propose a research program in the active control of acoustic noise (and related problems) using adaptive identification and control methodologies. The motivating applications are the control of acoustic noise in a one dimensional or duct noise scenario (e.g. heating, ventilation and air conditioning or HVAC applications) as well as the control of noise in a three dimensional or enclosure scenario (e.g. automobile or helicopter interiors). Open problems to be addressed in this research program concern (a) the systematic stability analysis of adaptive techniques used in the presence of intrinsic feedback loops which are caused in these applications by acoustic feedback and not by the usual closed loop control configurations assumed in adaptive control theory and (b) the development and efficient implementation of adaptive filters especially in the MIMO enclosure problem. The research program will clarify the pertinent aspects of adaptive control theory and practice and thus allow the systematic application of adaptive techniques. The research program will be conducted in collaboration with and will utilize experimental facilities of the United Technologies Research Center in East Hartford, CT. It is expected that the multidisciplinary team thus assembled by this collaboration will allow for wide-ranging and practical research results to be achieved and broadly disseminated thus making contributions to both education and commercial interests. ***